Science and the Organization of the Modern State

With the rise of complexity of the modern state, it has become increasingly obvious that better methods of administration are needed. Not only must the bureaucracy become more efficient, but the implications of government policies must be analyzed. In contrast to the practice in the United States where decisions on policy and the use of social sciences in reaching these decisions have been made on an ad hoc basis, several European countries have given the scientific study of government administration and policy enactment a special position. France, for example, has established a special academy for the study of administration. France's current socialist prime minister and his immediate conservative predecessor along with a large proportion of their cabinets are graduates of this academy. In Germany, a special science called the "sciences of state" (Staatswissenschaften) was established to address the administrative problems of the modern state. This science has no counterpart elsewhere and includes aspects of economics, statistics, politics, public administration, public law, public finance, agriculture, forestry, mining, and "technology." This grouping of disciplines originated in the 18th century as a curriculum to train state officials in the administration and reform of society. Dr. Lindenfeld will trace what happened in the 19th century as these disciplines became re-defined with changing political and economic conditions. In order to carry out this study, he will analyze published sources (journals, textbooks, monographs), comprehensively survey listings of "Staatswissenschaften" in German university catalogs between 1820 and 1914, examine ministerial and university archives, and look at individual correspondence of leading proponents of the field. The results will provide several case studies on the value of such a practically oriented field for the organization and operation of a modern state and provide a valuable contrast to the American "system" of ad hoc reforms of administration. This study will also contribute to our knowledge of German history where the issue of German attitudes towards modernization and modernity is still debated.